Optimization of Working Conditions in Metal Deformation Processes in View of Occurrence of Material Workability Potential

This one year supplement to NSF Grant No. INT-8509253 between V. Vujovic, University of Novi Sad and Aly Shabaik, UCLA, was approved by the U.S.-Yugoslavia Joint Board for Scientific and Technological Cooperation in May 1988. Supplemental support is recommended to complete the joint research project on optimization of working conditions in metal deformation in view of occurence of material workability potential.